Research Experiences for Undergraduates in Chemistry at the University of New Mexico

Professor Richard W. Holder and other members of the Chemistry Department of the University of New Mexico are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from design of inorganic and organic films for chemical sensors to study of reactions in molecular beams. Early contact with research directors will enable participants to choose a research project and prepare for the summer's work prior to the start of the program. Students will give a presentation regarding their proposed work during their first week on campus.